Third Meeting of the U.S.-Japan Joint Technical CoordinatingCommittee on Masonry Research

The U.S.-Japan Coordinated Program from Masonry Building Research is the third in a series of joint structural research projects done under the auspices of the Panel on Wind and Seismic Effects on UJNR. Research in the U.S. began in the mid-fall of 1985 and is progressing well. The Japanese research began approximately 18 months earlier and is also in good order. Joint meetings are held every year, alternating between countries, for the purpose of exchanging ideas and information to the benefit of both countries. This project would support attendance of nine U.S. researchers at the next meeting in Japan. In addition, there will be opportunities for the U.S. delegation to witness Japanese masonry construction, masonry unit manufacture and the set-up of the full-scale test of a five-story masonry building.